SBIR Phase II: High Data Rate Biometric Monitoring

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project is to advance new pressure sensors for wearables. In car seats these sensors can help determine occupancy or measure driver attentiveness. These sensors can also be used to enable a sense of touch in robotic platforms, thereby improving automated decision-making processes. In the virtual and augmented reality sector, this system can measure force and pressure information to improve the training and learning outcomes across a range of industries, including sport, medical and military training applications. In the healthcare and wellness market, the proposed sensors would provide biometric data on high speed motions and ground reaction forces, as well as respiration and muscle fatigue information for improved outcomes.

This Small Business Innovation Research (SBIR) Phase II project focuses on advancing stretchable photonic sensors in the wearables industry. These elastomeric sensors are lightguides that change power output upon stretching, with the change in power output proportional to the amount of strain applied. The power output from the sensors can be calibrated towards biometric metric outputs such as high speed kinematics (joint angle velocities) and muscle fatigue (volume changes due to inflammation). Due to the soft, stretchable and thin nature of these lightguides, they can easily be integrated into garments without affecting their mechanical properties, and thereby be essentially unnoticeable to the wearer. Currently, these sensors can gather data at rates two orders of magnitude faster than the closest competitive technology. This project will focus on further increasing the data acquisition speeds and hardware testing.